Peer to Peer MANET Workshop - Dagstuhl, Germany (10-12 April 2005)

The purpose of this workshop on Peer-to-Peer Mobile Ad Hoc Networks - New Research Issues is to explore architectural issues in mobile ad hoc networks and how the peer-to-peer overlay paradigm can be used in this environment. Multiple peer-to-peer networks, corresponding to different applications, may coexist on a large ad hoc network structure (eg, emergency response, urban vehicular grid, etc.). This workshop will focus on the applicability of wired peer-to-peer models to the wireless scenarios and more generally to the research problems emerging in the ad hoc peer-to-peer area.